Topics in Geometric Group Theory

Abstract

Award: DMS-0706259
Principal Investigator: Tadeusz Januszkiewicz, Michael W. Davis

Within the last few years, two new lines of research have opened
up: weighted L^2 -cohomology of Coxeter groups and simplicial
nonpositive curvature. Davis and Januszkiewicz plan to continue
their research on these and other topics in geometric group
theory. The "weight" in L^2 -cohomology depends on a positive
real parameter q and on word length in the Coxeter group W. The
major unsolved problem is to determine this cohomology in the
"intermediate range," for q between r and 1/r, where r is the
radius of convergence of the growth series of W. Januszkiewicz
plans to develop a theory of "combinatorial nonpositive
curvature" which will simultaneously generalize simplicial
nonpositive curvature and the theory of nonpositively curved
cubical complexes. In this new theory the cells will be products
of simplices. Other problems concern the compactly supported
cohomology of buildings, the L^2 -cohomology of hyperplane
complements and the question if certain hyperplane complements
are the classifying spaces for Artin groups.

Nonpositive curvature relates to areas outside pure mathematics
ranging from robotics to statistical mechanics. The theory of
groups generated by reflections is ubiquitous in mathematics.
Reflection groups are used in areas ranging from geometry and
topology to dynamical systems to number theory and they play a
decisive role in Lie theory and in the theory of algebraic
groups. Around 1960 Jacques Tits introduced the notion of a
"Coxeter group." Synonymous terminology could have been an
"abstract reflection group." Coxeter groups form a much wider
class of groups than do the classical examples of geometric
reflection groups. In 1987 Moussong proved that each Coxeter
group acts as a reflection group on a certain nonpositively
curved space. Because of this, Coxeter groups have become
important in geometric group theory both as a source of new
examples and as a paradigm for predicting new results. The new
research on weighted L^2 -cohomology has revealed some unexpected
connections between several different topics in the theory of
Coxeter groups. More remains to be discovered.